A Theoretical Approach to Geometric Design and Manufacturability

This research project concerns some fundamental theoretical work in engineering design and manufacturing. A mathematical structure for the design space for homogeneous geometric objects will be defined and studied. Using this work, manufacturability will be examined and the classes of geometric objects that can be manufactured or that can be approximated by manufacturable artifacts will be characterized for material removal processes.

If successful, this research will provide a sound foundation for design optimization and design spate exploration. It may lead to improved Computer Aided Design systems and better selections of algorithms for design optimization and design space exploration. A further result will be a complexity concept for manufacturing as well as a rigorous measure of agility. Finally, technology management will benefit from better information to use in making decisions about particular pieces of manufacturing equipment and the choice of whether to invest in dedicated or flexible machines.